Acquisition of a High Efficiency, High Resolution Gamma Ray Spectrometer

Naturally-occurring radionuclides of cosmogenic origin and of the U-Th decay series, as well as man-made nuclides produced by atmospheric weapon testing and nuclear reactors, have proven to be valuable tracers for geochronology and geochemical studies. At the University of Southern California, the application of these isotopes is being actively studied for solving oceanographic, geologic and environmental problems. In many cases, the research has been carried out in collaboration with scientists at several other institutions. The measurements rely heavily on two work-horse instruments: y-ray and &-ray spectrometers. Whereas the &-spectrometer has 16 detectors to serve the basic need in the alpha-counting area, there is only one detector for y-ray spectrometric work. The y-ray detector, seven years old, has shown signs of wear-and-tear as a result of heavy use. The present gamma counting system not only is heavily taxed beyond its capacity, but also limits the ability to make measurements in the field and on short-lived isotopes. This action provides funds to purchase an additional y-ray spectrometer, equipped with a high efficiency, high resolution well-type intrinsic germanium detector, to alleviate this problem. The acquisition will also enable a substantial reduction of man-power in future analyses to be realized and benefit programs both at USC and at the institutions of our collaborators.